Molecular Basis of Ion Channel Gating

Approximately half the proteins that are present in living systems are associated with biological membranes, and these proteins preform some of the most interesting and important functions in the cell. The proposed work is directed at studying membrane proteins called ion-channels which facilitate signaling in nerve cells. In order to understand how the nervous system operates, information on the molecular structures of ion-channels will be required, and it will be necessary to characterize the specific changes in these structures that control nerve cell activity. At the present time there is not a single ion channel from the nervous system that is characterized at the molecular level. In general , there is a lack of molecular information on membrane proteins because efficient experimental techniques to study these types of proteins have not been developed. This proposal will develop new methodologies to examine membrane protein structure. One approach will use a technique called mass-spectrometry, and it will be combined with traditional chemical labeling techniques to determine how proteins are structured in biological membranes. Dramatic improvements in mass spectrometry in the past few years have made it a very powerful and ideal technique to investigate proteins. A second approach will place molecular probes called spin-labels at specific sites in membrane proteins to provide information on structure and changes in structure. These techniques will be applied to an ion-channel called the acetylcholine receptor. The acetylcholine receptor is a membrane ion channel that functions at the neuromuscular junction, and it is typical in size and complexity to many other ion channels in the nervous system.